Topics in Mathematical Analysis

Proposal DMS-0401260
PI: F. Michael Christ- University of California, Berkeley

Title: Topics in Mathematical Analysis

ABSTRACT

Research will be conducted on a broad array of problems
in harmonic analysis, linear and nonlinear partial differential equations,
several complex variables, Schroedinger operators,
and ordinary differential equations.
In harmonic analysis proper, the decay properties of multilinear oscillatory
integral operators will be investigated, and Lebesgue space mapping properties
of generalized Radon transforms will be analyzed in terms of underlying geometry.
Techniques from harmonic analysis
will be used to develop a theory of almost everywhere WKB asymptotics for solutions
of ordinary differential equations depending on a parameter.
In complex analysis, compactness of the d-bar Neumann problem, the
analytic hypoellipticity of related operators, and Toeplitz operators will be investigated.
The Cauchy problem will be studied for nonlinear evolution equations, with the aim of
clarifying phenomena involving instablility and growth of norms of solutions.
The spectra and generalized eigenfunctions of time-independent Schroedinger operators,
in one and higher dimensions, will be investigated.

The most fundamental laws of physical science are formulated as partial differential
equations. These equations are sometimes linear, and sometimes nonlinear, modeling
various types of self-interaction. The nonlinear Schrodinger equation arises in
connection with Bose-Einstein condensates, fiber optics, and assorted other physically
different phenomena. Time-independent Schrodinger operators with long-range potentials
model the quantum properties of disordered electrical media.
Other sources of problems concerning differential equations are internal to mathematics,
such as complex analysis in several variables.
One of the most basic tools for the analysis of differential equations is harmonic
analysis. This research will focus both on the use of harmonic analysis methods to
further the understanding of the nature of solutions of differential equations,
and on the development of new tools within harmonic analysis which may ultimately provide
further insight into differential equations, as well as solving problems within harmonic
analysis itself.